Collaborative Research: Scientific Drilling in Hawaii: Physics and Chemistry of Mantle Plumes

9528594 Stolper This award is part of a multi-disciplinary project to drill a 4.5 km hole into the eastern flank of Mauna Kea volcano in Hawaii. The primary purpose of the drill hole is to acquire a continuous physical and geochemical record of the growth of a major intraplate hotspot volcano. The PIs are most interested in using this record to constrain the dynamics and nature of mantle plumes and other mantle processes; in addition, the sample set provided by the borehole will also be very valuable to other communities of investigators such as volcanology and paleomagnetism, and the study of the fluids flowing from the borehole will provide information about shield-volcano hydrogeology. ***